UNAVCO Workshop on Continuous GPS Networks and Seismic Networks

9412375 Bock The PI will organize and run a topical workshop on "Continuous GPS Networks and Seismic Networks" for a group of about 40 participants, including approximately a number of graduate students and postdocs. The workshop will be jointly funded by Scripps Oceanographic Institute, UNAVCO, and IRIS and will focus on how UNAVCO can best support PIs with global and regional products and how IRIS might participate in the support of global observations. Global data collection and analysis issues to be discussed at the workshop are directly related to the HPCC initiative. ****